Presidential Young Investigator Award: Thermal Aspects of Grinding

This research is focused on heat transfer in metal grinding. An analysis of the convective heat transfer between the grinding zone and the fluid will be initiated. This analysis is difficult because the geometry is complex and poorly defined, the degree of fluid penetration into the grinding zone is uncertain, and the amount of heat generated is partly dependent on the fluid type. The grinding wheel is modeled as a porous medium containing the grinding fluid. The fluid-filled wheel and the workpiece are in relative motion, and heat is generated at their interface. The analysis shows very good agreement with preliminary experimental measurements of the grinding zone temperatures. The research planned can provide a relationship for the workpiece surface temperature in terms of the operating parameters and the grinding power. Since the grinding power can be monitored during the grinding process, the operating parameters can automatically be adjusted to lower the temperature to avoid thermal damage.